MRSEC: The Georgia Tech Laboratory for New Electronic Materials

The Materials Research Science and Engineering Center (MRSEC) at the Georgia Institute of Technology addresses the need for new electronic materials and associated processes for applications in microelectronics, optics and sensors. Materials growth methods, electrical, chemical and physical characterization, pattern generation, device fabrication, and theory/modeling are invoked to ensure holistic and interdisciplinary approaches to the development and investigation of novel materials and devices. The single Interdisciplinary Research Group on Graphene Science and Technology investigates fabrication and characterization approaches for the implementation of epitaxial graphene as an electronic material. The MRSEC has extensive collaborations with corporations, national laboratories and universities world-wide. Broad educational activities and outreach programs that integrate materials research into K-12, university and professional education are supported and fostered. Shared experimental facilities at Georgia Tech and partner institutions ensure the ability to fabricate and characterize materials for use in a variety of applications.